Mathematical Sciences: Clustering Algorithms

The research will deal with the broad area of cluster analysis. Cluster analysis is classification of objects in to groups of similar ones. The principal investigator has been a pioneer in the field of cluster analysis. He will investigate several statistical problems connected with clustering. The major problems with the clustering algorithms are to answer the following four questions. (1) How many clusters? (2) Are the clusters real? (3) Are the clusters reliable? and (4) What algorithms should be used. Statistical methods will help answer these questions. Multivariate density estimation procedures will be used. Some of these techniques are used in spatial analysis as well.